Dissertation Research: Russian Orthodoxy, Religious Syncretism, and Ethnic Identity among the Alutiit of the Kenai Peninsula

ABSTRACT
ARC 0528564

This award supports dissertation ethnographic research on Russian Orthodoxy and ethic and cultural identity among the Alutiiq on the Kenai Peninsula, Alaska. The research will examine social and cultural processes of religious syncretism and their role in articulating ethnic identity. Based on extended ethnographic fieldwork, the research will shed light on how local Orthodoxy and its associated symbols mediate group and individual identity.